CAREER: Chaotic transport -- from fundamental theory to applications in atomic physics

Nonlinear dynamics has historically played a fundamental role in explaining diverse and
complex atomic processes, a role which in turn has stimulated numerous theoretical
advances in classical and quantum chaos. This trend continues as advances in atomic
and optical techniques provide an unprecedented level of control and precision for
experimental studies of chaos in atomic systems. For example, the time evolution of
highly localized initial states (e.g. ultrashort optical pulses, Rydberg wavepackets, and
localized ensembles of ultracold atoms), can be measured as they evolve and disperse
within a chaotic potential, thereby probing the detailed fractal structure in the chaotic
phase space. Such precision tools, however, highlight a fundamental deficiency in
theoretical nonlinear dynamics; there exists no general framework (in the sense of
symbolic dynamics) capable of classifying the diversity of chaotic behavior exhibited by
transport in real physical systems.
The focus of this proposal is twofold: (i) It will exploit new advances in chaotic dynamics
to motivate, guide, and interpret experiments capable of probing chaotic phase space
with unprecedented resolution. These include the chaotic transport, ionization, and
control of Rydberg wavepackets as well as the elucidation of novel chaotic pathways for
the mixing and loss of ultracold atoms in optical traps. (ii) It will develop a nonlinear
dynamics toolbox that can extract an accurate (symbolic dynamics) model for the
structure of chaotic transport in Hamiltonian systems with two degrees of freedom. This
model can be made arbitrarily precise, even for systems exhibiting a mixture of chaos
and regularity. The prior success of “homotopic lobe dynamics” in describing phase
space transport will serve as a key ingredient of this program. Finally, recognizing the
natural topological extension of homotopic lobe dynamics to higher dimensional spaces,
this proposal will address the challenge of chaotic transport in more than two degrees of
freedom, for which far fewer techniques currently exist.